Protein Stabilization and Destabilization by Guanidine Salts

9417773 Timasheff The objectives of this research is to define on the thermodynamic and molecular levels the interactions between guanidine salts and proteins in the native and unfolded states and, thus, to gain an understanding of the manner in which these interactions control the state of folding of globular proteins; to establish the individual contributions of the guanidinium (Gua+) in and the anions in the Gua+ salts (C1, SO4-2, SCN-, Acetate-) to the stabilization and unfolding of protein structure and to establish the rules of additivity and compensation of the actions of these ions on the thermodynamic and molecular levels; to define the role of water molecules in contact with protein surface and interacting very weakly with it in the modulation of i) protein destabilization by Gua+ ions, and ii) the compensation and additivity of the Gua+ effects by the anions. The system of guanidine salts involves the simultaneous interactions of proteins with the Gua+ ions and the salt anions. This brings into play the phenomena of additivity and compensation between the ions, as well as the expected compensation between Gua ions interacting with different loci on the protein surface. Measurements of the thermodynamic (preferential) binding of guanidine salts with proteins in the intact and unfolded disulfide cleaved states will be carried out over a broad concentration range (0.5 to 7.0 M GuaHC1) at several solvent pHs. From these, free energies of interaction isotherms will be generated over the entire denaturant concentration range for both the native and unfolded states of the protein. Experiments as a function of temperature will give enthalpies and entropies of interaction. The preferential binding values will be compared then with site occupancy data on the protein, which will permit to decompose the water molecules in contact with the protein surface into those that are exchangeable with co-solvent molecules and of those at loci from which the Gua+ salts are totally excluded. The establishment of this balance will permit to define the role of weakly interacting water in the stabilization of protein structure. Comparison between the Gua salts (from sulfate, a stabilizer to thiocyanate, a strong denaturant) will permit to define the role of the guanidinium ion in the destabilization process. The preferential interactions will be measured by dialysis equilibrium coupled with high precision densimetry at various temperature; various spectroscopic techniques will be used to define protein transitions. %%% The research addresses the issue of the stabilization of proteins by various added materials. In the expression and processing of newly synthesized proteins by recombinant techniques, such as used in biotechnology, it is frequently necessary to dissolve them out of large aggregates (inclusion bodies) formed in the cells and then to fold them into an active structure, and to maintain that active material intact. The solubilization and refolding processes are frequently done in the presence of guanidine hydrochloride which, at high concentrations, is a destabilizing agent. On the other hand, the related salt, guanidine sulfate is a good stabilizing agent,but a poor solubilizer. At present the uses of such agents are mostly empirical. The rules that govern the actions of these agents will be established by detailed physical chemical studies of their interactions with proteins and the role played by water in these actions will be established. Such a rational development of the rules of additivity and compensation between these, and other additives to the solvent medium will permit, in turn, the rational formulation of complex solvent mixtures of strong and weak stabilizers and destabilizers to use systematically in the extraction and folding of newly synthesized proteins, as well as in their long range storage in active form. ***